Minority Postdoctoral Research Fellowship

This applicant proposes to study the molecular genetics basis for differences in alcohol dehydrogenase expression among three species of Drosophila. Specifically, the study is hoped to shed some light on the importance of structural versus regulatory genetic variants in adaptive evolution. The work is planned to take place in the laboratory of Dr. Cathy Laurie at Duke University.